Soot Formation - A Review

The purpose of this study is to summarize and critically discuss soot nucleation, growth, and oxidation. The soot physical appearance and microstructure, as well as the nature of the soot nucleus are also treated at some length. The present effort focusses on a number of points, some of which have not yet been satisfactorily resolved. They include: 1. Chemical species that are important in the prenucleation stage. 2. Nature of the nucleus (ionic or radical). 3. Relative importance of fuel composition and amount of oxidizer to the flame temperature. The present study will also include a discussion of the effects of additives and of selected work involving hydrocarbon decomposition. The overall gain to be expected from this review is a clarification of the research problems worthy of NSF support in the soot generation area. The current situation is one of contention and overspecialization. A broad redefinition of objectives is urgently needed; this review would provide a solid technical base for such an effort.